Descartes Scholars Program

The Descartes Scholars Program (DSP) is providing twelve students majoring in Chemistry, Computer Science, Engineering, Mathematics, and Physics four-year renewable, need-based scholarships. The Scholars come from the greater Los Angeles area, a region that has a high concentration of underrepresented ethnic minorities.

The DSP's retention plan includes direct classroom interaction with project faculty, workshops, social support services, academic counseling, and the availability of tutors for technical and writing courses. Furthermore, Descartes Scholars have the opportunity to participate in year-round activities such as a study abroad program; undergraduate research and conferences; and one-on-one internship, career and graduate school advising. Program activities change yearly to accommodate students' educational progress. The program's Management Team is tracking, documenting and assessing the Scholars' educational progress during their entire tenure at LMU.

The project's objective is to ensure that the twelve Descartes Scholars earn bachelor's degrees in STEM fields. Upon graduation the Scholars are expected to be prepared for graduate studies in a technical field and have some of the skills necessary to allow them to assume leadership roles later in their careers.